Northwest Regional Leadership Workshop for High School Teachers of Chemistry

Fifty outstanding high school chemistry teachers from Idaho, Montana, Oregon, and Washington, will participate in a four week intensive summer program and two follow-up sessions during the academic year. The instruction will focus on how to employ safe demonstrations and the utilization of computers in effective instruction. These teachers will provide in-service and leadership activities for other chemistry teachers in their state. The State Science Supervisor in each state will provide support services and communications for the in-service activities that will be conducted by the participants from their state. The instruction will emphasize "descriptive " chemistry and how demonstrations can be used effectively to reduce abstractions to some degree and provide concrete observations through demonstrations. A concerted effort will be made to modify some standard demonstrations so that they can be done with less expensive equipment and inexpensive materials. Managerial and CAI uses of the computer will be emphasized. Software programs will be made available for teachers to evaluate. Science, Technology, and Society topics will be stressed with a focus on how they can be translated into the daily instructional program. Participants will develop materials to be used and distributed to other teachers who participate in the in-service workshops that they present. School district administrations will support the workshops presented by teachers. The PI has been very instrumental in providing instruction for precollege teachers. He and the staff are deeply committed to improving instruction in secondary chemistry teaching.